An Accurate DNA Base Caller

The major goal of this project is to develop a new base calling technique that will improve the efficiency of the DNA sequencing process. This will be achieved by increasing the average length of error-free sequencing and enhancing the base identification process at the beginning and end of sequences. This will increase sequencing throughput and reduce the cost of DNA sequencing. Previous work by the PI has demonstrated the ability to extend the error-free read by 30%. This was achieved through work on cross-talk filtering, baseline adjustment, base-spacing prediction and development of a fuzzy base-calling algorithm. Further adaptive capabilities as well as full development and implementation of the methodology is planned. The software will be tested on a large number of DNA sequences and remove specific hardware and operating system requirements, as well as be exploitable over the web. Accurate, inexpensive genomic DNA sequencing will be a cornerstone of 21st century biology.